ARISE (Applications Reform in Secondary Education) Course Four

9730430 Godbold The Consortium for Mathematics and Its Applications is developing instructional materials for a fourth year high school mathematics course that complements the materials for the first three years of the Applications Reform in Secondary Education (ARISE) project and, thus, completes the materials for a high school curriculum. The materials are field-tested and are complemented by a teacher'' edition, a teacher's resource guide, a solutions manual, and a CD-ROM containing relevant calculator and computer programs. The entire series of instructional materials is being marketed under the title, Mathematics: Modeling Our World. Additionally, a study is being conducted to learn how students perform in college when they have had four years of a reform curriculum.